US Panel on Wind and Seismic Effects

This award is for the support of the U.S. Panel on Wind and Seismic Effects. The Panel is comprised of 15 agencies participating in various tasks committees which focus on specific issues such as earthquake hazard reduction. Annual meetings alternate between Japan and the U.S. The National Bureau of Standards, Center for Building Technology, provides the Secretatiat of the U.S. Panel.